Evolution of Resistance and Tolerance in Wild Sunflower Helianthus annuus

9726407 Pilson The goal of this work is to examine constraints on the joint evolution of resistance to, and tolerance of, insect damage in the wild sunflower, Helianthus annuus. A plant is resistant if it experiences little insect damage relative to other plants in the population. In contrast, a plant is tolerant if it experiences damage, but that damage has little effect on plant fitness. Although most studies of the evolution of plant response to herbivory have only considered resistance, a theoretical model suggests that resistance and tolerance do not evolve independently. This work will test several specific assumptions and predictions of that model. These predictions include the cost to plants of being either resistant to, or tolerant of, damage, the genetic structure of populations experiencing herbivory, and the type of natural selection imposed on populations by insect herbivores. Testing these predictions will involve the use of quantitative genetic methods to quantify genetic variation for resistance and tolerance to several common insect herbivores, including the stem and head-boring lepidopteran, Suleima helianthana, the head-clipping weevil, Haplorhynchites aeneus, the seed-feeding weevils Smichronyx fulvus and S. sordidus, and the head-feeding lepidopteran Homeosoma electellum. These data will also be used to measure natural selection on resistance and tolerance, the pattern of correlations between resistances and tolerances to different herbivores, and the costs of these characters. In addition, mechanisms of tolerance will be examined. Previous work suggests that tolerance may typically be considerably more costly than resistance. However, little is known about characters conferring tolerance, and thus, little is known about why tolerance may be costly. The hypothesis that variation in plant life history leads to variation in tolerance will be tested.. Additional experiments will quantify resource allocatio n patterns and floral phenology, and will determine if these characters are correlated with the ability of plants to tolerate insect damage. Herbivory by insects is generally detrimental to plant fitness. In addition, genetic variation for resistance to herbivory is nearly ubiquitous in natural plant populations. These data suggest that insects should frequently impose natural selection on plant resistance, and further, that such selection should proceed until either plant populations are maximally resistant or genetic variation is exhausted. That selection has apparently not acted in this way has stimulated considerable interest. One explanation for this anomalous result is that resistance is costly to plants. If this is the case, then resistant plants should have high fitness in the presence of insects, but low fitness, relative to susceptible plants, in the absence of herbivores. This is because when herbivores are absent resistant plants bear the cost of resistance but receive no benefit. However, many attempts to quantify costs of resistance have failed. This work will determine whether simultaneously considering resistance and tolerance allows costs of these characters to be detected, and may provide one explanation for the abundance of genetic variation for resistance in natural plant populations.